Nonlinear Phenomena in Fluid Dynamics and Related PDE's with Applications to Atmosphere/Ocean Science

Majda
9972865
The investigator continues studies of the theory and
applications of partial differential equations to problems in
turbulence and atmosphere/ocean science. The project emphasizes
problems in atmosphere/ocean science involving four research
areas:
1) Stratified Mixing, Instability and Turbulence;
2) Novel Statistical Theories for Open Ocean Convection;
3) Nonlinear Waves in Tropical Meteorology;
4) Nonlinear Stochastic Modelling for Geophysical Flows.
The approach to all of these issues involves a sophisticated
combination of asymptotic analysis, numerical computation, and
theoretical mathematical analysis to gain insight into these
complex and important phenomena. Inherently nonlinear or
statistical methods are emphasized throughout. The project,
especially in the latter three topics, stresses
multi-disciplinary collaboration and exchange of ideas between
applied mathematicians, atmospheric scientists, and
oceanographers.
Behaviors of the atmosphere and ocean are complex and not
well understood. The project involves using novel and
sophisticated mathematical theories and techniques to improve
our understanding of important features of the climate, such
as El Nino, and the poleward transport of heat in the North
Atlantic. Such an understanding could lead to improved
predictions of weather, climate, and environmental phenomena.
The approach involves multi-disciplinary collaboration and
exchange of ideas between applied mathematicians, atmospheric
scientists, and oceanographers. The project is supported by the
Applied Mathematics and Computational Mathematics programs in the
Division of Mathematical Sciences, by the Physical Oceanography
program in the Division of Ocean Sciences, and by the Large-Scale
Dynamic Meteorology program in the Division of Atmospheric
Sciences.